"The 2000 Aspen Winter Conference: Way Beyond the Standard Models of Particle Physics and Cosmology; Aspen, CO

A workshop on the physics - cosmology interface will be held at the Aspen Center for Physics, Aspen, Colorado, January 30- February 6, 2000. This workshop will consider physics that is far beyond what is presently understood, and try to identify signatures of this new physics that could be sought experimentally. Thus, the workshop is very important to the long-term future of research at the physics - astrophysics interface.